Theoretical Studies of Continuous and Discrete-Time Electrical Circuits

Willson This research is examining several important theoretical issues in nonlinear transistor networks including stability criteria for and global properties of dc operating points, transient circuit simulation, and stability issues related to analog resistive networks for implementing two-dimensional signal processing algorithms. Additional research is being pursued in the design of FIR filter banks, neural networks, and other topics. While these areas of research are somewhat diverse, they share the unifying characteristic that all projects have as their primary goal the development of a better and more rigorous understanding of the fundamental nature of the circuits and their properties, and the development of new and useful techniques for their analysis and design.